Petrogenesis of Komatiites, Kambalda, Western Australia

The nickel sulfide deposits at Kambalda, Western Australia are the type-examples of Archean komatiite-associated nickel sul- fide ores. Stratigraphic and volcanological relationships at Kambalda suggest that the lowermost flows were channelized, that they may have assimilated underlying sediments and basalts, and that this may have induced sulfide separation, modified magma: sulfide ratios, and influenced the composition of the sulfide ores. An essential element in the evaluation of this process is a determination of the degree of hybridization experienced by the host units. Although there is abundant geochemical and isotopic evidence that associated komatiitic basalts have been contaminated by granitic crust during ascent, geochemical recognition of hybridization in the komatiites is hampered by the dynamic nature of the lava flows and a paucity of detailed geo- chemical data in critical areas. The purpose of this project is to evaluate the degree of hybridization within the basal host units and across the komatiite sequence, using the trace element geochemistry of specially selected samples taken from diamond drill core and underground miner openings. Geochemical analyses will be performed by wavelength dispersive X-ray fluorescence spectrometry and isotope dilution mass spectrometry. Metasomatic alteration during low grade regional metamorphism will be evaluated using mass balance calculations and emphasis will be placed on least-mobile trace elements. The degree of hybridi- zation will be established by linear least-squares mixing calcu- lations and the combined effects of fractional crystallization and assimilation will be modeled thermodynamically. The results of this study will have wide applications in the fields of Archean geology, volcanology, and economic geology.